Mathematical Models of Moving Boundary Problems in Developmental Biology and Cell Motility

Dillon
0109957
The principal investigator and his colleagues develop
mathematical models and computational methods for analyzing the
motion of eucaryotic cilia and flagella, the growth and
development of the vertebrate limb bud and tumor growth. The
objective of the cilia modeling is to develop three-dimensional
models for an individual cilium or flagellum and for
three-dimensional arrays of cilia. These models incorporate
discrete representations of the axoneme's ultrastructure
including the individual dyneins and microtubules, as well as a
continuous description of the fluid mechanics using the immersed
boundary method. Vertebrate limb development is a widely-used
model system for the study of development. The investigator and
his collaborators have developed a 2D model for vertebrate limb
development that describes limb bud outgrowth and predicts the
spatio-temporal distribution of growth factors and morphogens.
The major goals of the limb development modeling are to further
validate the 2D model, to extend it to three dimensions in order
to determine what signals cells see as a function of their
position in the three-dimensional limb bud and developmental
history and, from this, to suggest how the signals can be
integrated by cells to produce the observed spatial patterning.
Limb development and tumor growth are moving boundary problems
that involve tissue growth, the transport of growth factors and
control of gene activity. The investigators are developing an
immersed boundary model for tumor growth along with the limb
development model.
These mathematical models focus on the complex biological
systems involved in cell motility, vertebrate development, and
tumor growth. An important aspect is the development of
computational tools for the study of these processes. Thus, the
ciliary model is used for the computational study of dynein
activation mechanisms in cilia and flagella and the multiciliary
model for the study of mucociliary interaction. The vertebrate
limb development model may be used as an aid in interpreting
experimental results, to help identify new experiments, and to
test hypotheses that may be difficult to test experimentally.
Because each of the models described in this proposal includes a
fluid-mechanical representation, there is a unifying element in
their mathematical description. The computational methods are
based in part on the immersed boundary method, and the computer
codes share many of the major subroutines. An important aspect of
this proposal is the development of parallel numerical methods
for the solution of these problems; advances in this area can be
used in a variety of problems in the field of computational
biofluids.